MIRTHE Post-Doctoral Fellowship in Industry

MIRTHE Post-Doctoral Fellowship in Industry
MIRTHE, the NSF-sponsored Engineering Research Center for Mid-InfraRed Technologies for Health and
the Environment, conducts a vibrant education and outreach program that starts at K-12 and culminates
at the post-doctoral level. Here, we propose a new addition to MIRTHE's post-doctoral research and
training program, i.e. the MIRTHE Post-doctoral Fellowship in Industry program.
A small group of recent MIRTHE graduates will be competitively selected to conduct year-long, postdoctoral
research on-site with MIRTHE industry member companies. The research projects are closely
linked to the fellows,former MIRTHE research and strengthen the university industry partnerships arising
from the joint work and the group of academic and industrial mentors tied together by the post-doc
fellows. In addition to full time work in industry, the post-doctoral fellows will be assigned mentors at
Princeton University; they will report twice yearly on their research to the entire MIRTHE community. The
fellowships are competitive, with a strict selection process, and are tightly woven into MIRTHE's overall
formal post-doctoral mentoring program.
The post-doctoral fellows are appointed through Princeton University at the base salary rate; the hosting
companies will raise the fellows, salary to the companies’ rate and will fund the fellows research
expenses; we estimate this to amount to at least 25% cost-sharing by industry.
Intellectual merit
MIRTHE is leading the development of an entirely new platform of trace gas sensor systems that provide
high-performance, cost-effective, and networked sensing capabilities. These sensor systems are based
on mid-infrared Quantum Cascade laser spectroscopy and excel through their compactness, autonomy,
networking capability, and fast time response. They fulfill the application requirements of trace chemical
sensing on the individual point sensor, urban sensor network, remote sensor, and regional scale. In doing
so, MIRTHE addresses the important societal challenges of securing a clean, safe, sustainable, and
healthy environment, clean air to breathe and accessible healthcare on the national and global scale.
The here proposed MIRTHE Post-doctoral Fellowship in Industry program sends five or more highly
qualified, competitively selected post-doctoral fellows to work on-site with MIRTHE industry members on
MIRTHE-related research projects. Their high degree of engineering excellence will strengthen
university,industry collaborations and will advance MIRTHE's mission and bold vision stated above.
Broader impacts
MIRTHE successfully trains and graduates a diverse and globally competitive U.S. workforce ready to
assume engineering leadership for the 21st century. Since 2006, MIRTHE's post-doctoral training program
has grown to encompass 9 current post-doctoral fellows with career aspirations in academia,
government, and industry. Three fellows have already “graduated” to long-term employment in
academia. MIRTHE has a proven track record to reach out to groups historically underrepresented in
science and engineering, and its researcher and student diversity consistently exceeds comparable
national averages. The here proposed MIRTHE Post-doctoral Fellows in Industry program provides an
outstanding opportunity to increase the size and improve the diversity of MIRTHE's post-doctoral
researcher pool.
The program will provide MIRTHE's graduates with additional training, skills, knowledge, and insights,
and will make them more competitive in the job-market, hence allaying the gravest of our post-doctoral
researchers, concerns about their career opportunities in the current weak economy.
The program will attract specifically post-doctoral researchers interested in a career in industry and in
starting up their own company. The post-doctoral fellows will also form key connections between
academia and industry in MIRTHE's industrial/practitioner collaboration program, which develops
prototypes of cost-effective, market-ready, mid-infrared sensing technologies; these technologies result in
new profitable product lines and new revenue streams for important industry sectors.